Tools of the Astronomer, An Interactive Science Education Exhibit

Lowell Observatory astronomers will collaborate with educators, museum specialists, and planetarium professional to design and implement a unique series of interactive science education exhibits entitled Tools of the Astronomer. The exhibits will capitalize on widespread interest in astronomy to illustrate the research process, demonstrate the theory and function of basic astronomical instruments, and encourage visitors to discover how measurements made with these instruments reveal the properties of celestial objects. Exhibit concepts developed by the Lowell staff will be evaluated by a National Exhibit Advisory Board (NEAB). The original concepts will then be modified to reflect the Board's recommendations, and prototype exhibits will be built. The prototypes will be extensively tested for durability and effectiveness in achieving the educational goals. Students and teachers from Arizona (including those from nearby Navajo and Hopi Indian Reservations), plus members of the general public, will participate in the testing. The NEAB will then review the completed prototypes and test results, and recommend any further modification or testing needed prior to selection of a professional exhibit fabricator to build the final exhibits. The completed exhibits will be installed and further evaluated in a new educational facility to be opened at Lowell Observatory in spring of 1994. There, the exhibits will be experienced by tens of thousands of people who visit Lowell Observatory each year. A significant fraction of these visitors will be school children who will participate in instructional programs designed around the exhibits. The exhibits also will ultimately be used in teacher workshops. To achieve maximum impact, all software, exhibit designs, teacher's guides, and other material developed in this project will be marketed to schools, science centers, planetaria, observatories, and other educational entities at the cost of reproduction.